Atmospheric Explorations: Participatory, Computer-based Simulations of the Weather

9353480 Jasperson "Atmospheric Explorations: Participatory, Computer-Based Simulations of the Weather" is a collaborative project of Augsburg College and the Science Museum of Minnesota. The purpose of the project is to enhance the interest and skills of museum visitors and students in science by providing a highly interactive exhibit environmental that allows the users considerable freedom in exploring topics in meteorology relevant to their everydays lives. The exhibits will be designed to accommodate a gender- and racially-diverse audience of national scope. ***